Nutrient Effects on a Detritus-based Stream Ecosystem

Abstract

98-06610
Rosemond

Nutrient effects on a detritus-based stream ecosystem

Increased nutrient concentrations threaten aquatic ecosystems worldwide. Nutrients, primarily nitrogen and phosphorus, from human and animal sewage and fertilizer runoff from farmland, are found in high concentrations in many lakes and streams. The amount of algae in the water body typically increases greatly in response to increased nutrient supply and dramatically alters the rest of the food web. However, the energy source of many aquatic food webs is dead plants (detritus) with associated bacteria and fungi, not algae. This study will determine the effects of increased nutrient supply on a detrital-based food web in a forested stream. The investigators will test whether nutrient addition increases microbial production and subsequently increases growth of stream consumers. They will also test whether microbes deplete detritus at rates that result in less food for higher consumers, thereby destabilizing the food web. The results of this work will aid in predicting how other detrital-based ecosystems respond to and are altered by human modification of nutrient supply.